Extremal combinatorics

The proposed project covers a range of important
problems in extremal combinatorics, principally those motivated by the
Turan problem, which has led to many developments in the theory of graphs
and hypergraphs. Here the ultimate goal is to determine the Turan numbers
of complete hypergraphs, an open problem that mathematicians have battled
with for over sixty years. Recently there has been a lot of progress in
this area, so it is an exciting topic for future research. The PI is
considering a variety of ways to extend the scope of this area, such as
the study of rainbow Turan numbers, which not only have natural
combinatorial motivations, but also have impressive potential applications
in additive number theory. Another direction is investigating an old
conjecture of Erdos on the number of edges one must delete from a
triangle-free graph to make it bipartite. A second area being studied is
the theory of set systems with restricted intersections, which has a rich
history in combinatorics, and has also found applications to computer
science, particular in the theories of complexity and communication. The
PI is continuing his study of the structural properties of large
intersecting systems, and investigating a conjecture of Ahlswede, Cai and
Zhang on cross-intersecting systems. The concepts of trace and
VC-dimension play a central role in many areas of statistics, discrete and
computational geometry and learning theory. The quantitive character of
these problems is poorly understood, and this project addresses a
conjecture of Anstee and Sali that offers some hope of improving this
situation.

As an area of pure mathematics, extremal
combinatorics is in the happy position of being relatively accessible to a
wider audience. It also finds a wide number of direct applications both to
other areas of mathematics and other academic disciplines, and thus makes
its influence felt indirectly as these disciplines in turn apply the
theoretical power of combinatorics in more practical settings. Its impact
on computer science is particularly striking, and its ideas also make
contributions to such diverse areas as physics, electrical engineering,
bioinformatics, economics, and internet modelling. The proposed project
covers a range of important problems in extremal combinatorics,
principally those motivated by a question of Turan, an open problem that
mathematicians have battled with for over sixty years, which has led to
many developments in the theory of graphs and hypergraphs. Recently there
has been a lot of progress in this area, so it is an exciting topic for
future research. The PI is considering various ways to extend the scope of
this area, including a rainbow variant that has impressive potential
applications in additive number theory. A second area being studied is the
theory of set systems with restricted intersections, which has a rich
history in combinatorics, and has also found applications to computer
science, particular in the theories of complexity and communication. The
concepts of trace and VC-dimension play a central role in many areas of
statistics, discrete and computational geometry and learning theory. The
quantitive character of these problems is poorly understood, and this
project addresses a conjecture of Anstee and Sali that offers some hope of
improving this situation. In addition to research, the PI is conducting
educational activities in his role as an instructor in mathematics at
Caltech, including developing and teaching courses to disseminate
cutting-edge research techniques in combinatorics, and mentoring students
on their own projects.